CPS: TTP Option: Frontiers: Collaborative Research: Software Defined Control for Smart Manufacturing Systems

Software-Defined Control (SDC) is a revolutionary methodology for controlling manufacturing systems that uses a global view of the entire manufacturing system, including all of the physical components (machines, robots, and parts to be processed) as well as the cyber components (logic controllers, RFID readers, and networks). As manufacturing systems become more complex and more connected, they become more susceptible to small faults that could cascade into major failures or even cyber-attacks that enter the plant, such as, through the internet. In this project, models of both the cyber and physical components will be used to predict the expected behavior of the manufacturing system. Since the components of the manufacturing system are tightly coupled in both time and space, such a temporal-physical coupling, together with high-fidelity models of the system, allows any fault or attack that changes the behavior of the system to be detected and classified. Once detected and identified, the system will compute new routes for the physical parts through the plant, thus avoiding the affected locations. These new routes will be directly downloaded to the low-level controllers that communicate with the machines and robots, and will keep production operating (albeit at a reduced level), even in the face of an otherwise catastrophic fault. These algorithms will be inspired by the successful approach of Software-Defined Networking. Anomaly detection methods will be developed that can ascertain the difference between the expected (modeled) behavior of the system and the observed behavior (from sensors). Anomalies will be detected both at short time-scales, using high-fidelity models, and longer time-scales, using machine learning and statistical-based methods. The detection and classification of anomalies, whether they be random faults or cyber-attacks, will represent a significant contribution, and enable the re-programming of the control systems (through re-routing the parts) to continue production.

The manufacturing industry represents a significant fraction of the US GDP, and each manufacturing plant represents a large capital investment. The ability to keep these plants running in the face of inevitable faults and even malicious attacks can improve productivity -- keeping costs low for both manufacturers and consumers. Importantly, these same algorithms can be used to redefine the production routes (and machine programs) when a new part is introduced, or the desired production volume is changed, to maximize profitability for the manufacturing operation .